Mathematical Sciences: Finite Subgroups of Lie Groups and Automorphisms of Vertex Operator Algebras

9623038 Griess This grant supports the research of Professor R. Griess to work on three different areas. The first area is that of embedding finite simple groups into certain exceptional Lie groups. Next he will study the automorphism groups of infinite dimensional vertex operator algebras. Finally he hopes to come up with methods that will give a more uniform method of generating the finite simple groups through the study of automorphisms of certain lattices. This is research in the field of algebra. Algebra can be thought of as the study of symmetry in the abstract. As such algebra has direct applications to areas of physics and chemistry. In particular the modern theory of gauge fields in physics uses this area of algebra extensively. There are also connections to coding theory and the transmission of data across communication lines.